Mechanism of Ferric Enterobactin Uptake through Fepa

9408737 Klebba The proposed research will study the transport mechanism of ferric enterobactin, a bacterial iron shelter (siderophore), through its Escherichia coli outer membrane receptor protein, FepA. This transport is energy -dependent and TonB- dependent, involving two biochemical stages: binding and internalization. The research program will elucidate the molecular mechanism comprising: Ferric enterobactin binding to we will identify specific residues of the receptor protein that recognize and bind the siderophore on the external surface of the bacterial cell, using site-specific and random mutagenesis of the FepA structural gene and biochemical assays of FepA function, and, FepA structure and conformation; we will characterize FepA structure with nitroxide spin labels attached to cysteine residues that have been introduced by directed mutagenesis, and monitor structural changes that occur within the receptor during ligand binding and transport. Biochemical, molecular genetics, and immunological techniques will be utilized, including random and site-specific mutagenesis, kinetic analysis of binding and transport, covalent modification in vivo and in vitro with nitroxide spin labels, and ESR spectroscopy. The proposed investigations will determine the protein structure tha the involved in siderophore recognition by the bacterial cell. This goal has not been accomplished for any tonB dependent receptor protein in any organism. Since all gram negative bacteria obtain iron with mechanistically similar transport systems, the results of theses studies will establish fundamental principles that are applicable to numerous trainsport systems in many different organisms. ESR analysis of spin labeled FepA will augment our general knowledge of membrane protein structure, and provide specific information about the dynamic of conformational changes that occur in TonB-dependent receptors during their interaction with ligands. Besides the knowledge gained abo ut the siderophore transport, these experiments will generate a methodological foundation for comparable investigations of any bacterial cell envelope protein. %%% The proposed research will study how iron passes through a membrane. We will use the bacterial outer membrane as a prototype for this process, and determine how a protein within this membrane, called FepA, recognize, binds, and internalizes the molecules of ion that it encounters in the environment. We will use both genetic techniques and physic- chemical methods to answer these question. The proposed experiments are deigned to identify any movement that occurs in the membrane protein during the iron transport process into the cell. By studying this process in bacteria, we hope to define a method that will lead to the understanding of how iron transport occurs in other organisms, as well. ***